Tectonic Evolution of the Darwin Metamorphic Complex, Southernmost Andes: Implications for Orogenesis in Cordilleran Settings

Compressional and extensional stages accompanying continental margin tectonics are commonly sequential and may be linked by underlying processes. Recent field and laboratory studies indicate that the high-grade metamorphism in the Darwin complex of the Andes of Terra del Fuego accompanied crustal thickening that resulted from the inversion of the Rocas Verdes marginal basin by obduction of the basin floor onto the South American continent. The uplift resulted from tectonic denudation of the overthickened crust in the latest Cretaceous or earliest Cenozoic. This project will involve a test of this hypothesis by assembly of a structural transect across Cordillera Darwin and development of a model for the evolution of the southernmost Andes in relation to their plate tectonic setting.